Symposium: Environmental Sex Determination in Reptiles

This proposal requests support for a one-day symposium entitled: Environmental Sex Determination in Reptiles: Patterns and Processes to be held at the annual meeting of the American Society of Zoologists in Vancouver, British Columbia, in December, 1992. The symposium consists of two sections: 1. Evolution and Ecology of TSD, and 2. Hormonal and Molecular Mechanisms of TSD. Twelve speakers will present their latest research on TSD in reptiles ranging from evolutionary and ecological theory to molecular and hormonal mechanisms. Each of the invited participants has made significant contributions in this field and will present a concise review of their latest findings. The proceeding of the symposium will be published in the American Zoologist and funds are also requested to partly defray these additional costs.